Synthetic Aperture Sonar for High Resolution Mapping and Change Detection

This project will attempt to develop an interferometric synthetic aperature sonar system for use on oceanographic research ships. Two technical developments will be necessary: formation of a synthetic aperature sonar image, and differencing the phase of the reference and repeat images to form a sonar interferogram. The simrad EM120 multibeam system on the R/V Roger Revelle will be used.